(GRGC) Cyclostratigraphy and Carbonate Platform Evolution, Middle Cretaceous, Northeastern Mexico

9417872 Osleger The proposed research intends to investigate the Mid-Cretaceous (Albian) Coahuila carbonate platform of northeastern Mexico, a laterally-extensive, passive-margin platform that represents the final major episode of carbonate sedimentation in the Gulf Coast region. The first objective of the proposed research is to determine the history of Mid-Cretaceous relative sea-level changes at time scales ranging from 104 to 106 years. This aspect of the project will involve the use of high-resolution sequence stratigraphy and cyclostratigraphy to document cross-platform relationships and interpret the temporal evolution of the Coahuila platform. The second objective is to determine the extent to which Milankovitch-scale cyclicity is developed in Albian shallow-marine carbonates of northeastern Mexico; Milankovitch periodicities have been unequivocally recognized in coeval Albian deep-sea sediments in Italy. The third objective is to use the observed field relationships to constrain two-dimensional computer models so that rates, frequencies, and magnitudes of accommodation change through Albian time can be quantitatively estimated for northeastern Mexico. The proposed cyclostratigraphic and sequence stratigraphic research is part of a larger-scale collaborative effort on the Mid- Cretaceous of northeastern Mexico currently underway involving a multidisciplinary team of biostratigraphers and magnetostratigraphers associated with Project Albicore of the Cretaceous Resources, Events and Rhythms working group. The proposed research is expected to result in several major contributions. More precise global correlations of Albian depositional sequences should be possible after the cyclostratigraphic and sequence stratigraphic results are integrated with the refined chronostratigraphic resolution attained by the collaborative researchers. The improved geochronometry, representing the merger of detailed sequence stratigraphy and computer modeling with bio - and magnetostratigraphy, will permit the quantitative estimation of rates and durations of global processes, and enhance interpretations of the regional- to global- scale mechanisms governing sequence deposition (tectonism, eustasy, environmental change). A further application of this interdisciplinary research on the relatively-uninvestigated Coahuila platform is that a new model will be developed for comparison with other Albian platforms worldwide, including the economically-significant carbonate platforms of the Middle East.